Machine Vision Through Inverse Optics: Theory, Algorithms, Experiments, and Hardware

Inverse optics is the problem of recovering 3-D scene information by mathematically inverting an image formation process. This grant is for study of inverse optics in active vision systems, where camera motion, focus, and stereo vergence are under computer control. The goal is to discover principles by which active computer vision can approach the capabilities of human vision.